HCC: Small: Embedded Meshes for Flow and Fracture

The proposal is focused on applications of embedded meshes to simulations involving interfaces in volumes, primarily fluids, but also fracture simulations. Embedded meshes are detailed polygonal meshes contained within a finite volume where a scalar field quantized at a much coarser level is also defined. As the scalar field changes over time as a result of the simulation, the polygon mesh vertices move within the volume, driven by the flow created by the scalar field time changes. This is a hybrid implicit-parametric model which can be used to efficiently solve a number of problems of interest, since some computations can only be performed more efficiently using parametric models, and others using implicit models. The propsal presents a detailed plan for extending the idea of combining a separate Lagrangian discretization of the interface (embedded mesh) with Eulerian discretizations for fluids.